A Molecular Engineering Approach to Negative Poisson's RatioPolymers

9420843 Griffin This project describes a molecular engineering approach to a new class of materials with remarkable properties. Negative Poisson's ratio materials (also known as auxetic materials) expand laterally when stretched. This is at variance with usual expectation since virtually everything thins when stretched - a rubber band for example. Although theoretically possible there are virtually no known examples of auxetic materials. It has however been recently discovered that special geometric features are capable of imparting this behavior and large scale macroscopic structures can be built to accomplish this. Also, special fabrication techniques can sometimes produce this effect by inducing unusual morphologies in certain polymeric materials. The Poisson's ratio is a fundamental elastic constant of a material and is interconnected to the other elastic constants which govern mechanical response. Tailoring the Poisson's ratio offers the possibility of precise control of mechanical performance. It has been recognized that ultimate control of such behavior lies in a molecularly designed auxetic material which will permit careful tailoring of this bahavior and which will give the maximum auxetic response. This proposal describes the design, the synthetic approach and the characterization of two polymeric classes each of which reflects at the molecular level the geometric features known to be mechanistically operative in producing an auxetic response at the macroscopic level. %%% A variety of extraordinary applications can follow: fasteners and rivets which will get fatter (tighter fit) upon attempted removal and gaskets and seals which will seat better (contraction) when under compression loading. Composites are also envisioned in which an auxetic fiber will reduce or eliminate fiber pull-out, one of the critical problems in composite science. ***